Acquisition of an Analytical Ultracentrifuge for Use in Biochemistry, Structural Biology and Polymer Science

A grant has been awarded to the State University of New
York at Stony Brook under the direction of Dr. Raleigh for the acquisition of an analytical ultracentrifuge.
The analytical ultracentrifuge was first developed more than 50 years ago
and its invention lead to a Nobel Prize. Since that time it has evolved
from a custom made piece of specialized apparatus to an essential everyday
tool for the investigation of basic biochemistry and chemistry. Analytical
ultracentrifugation is the method of choice for studying the properties of
large molecules that associate in solution. It is applicable to biological
and non-biological systems and it is now an important research tool in
biochemistry, structural biology and polymer science. The ranges of
applications of this technique are immense and are rapidly increasing.
Acquisition of an analytical ultracentrifuge will complement major ongoing
initiatives in polymer science and in structural biology and biochemistry
at SUNY Stony Brook.

Ten investigators representing five academic departments at SUNY Stony
Brook will conduct basic research projects. Their research interests span
the range from the development of new materials, to biology, polymer
chemistry, enzyme mechanisms, protein dynamics and folding, and viral
assembly. Together they supervise more than 90 researchers. Professor Chu
will use the instrument in his investigations of novel vesicle structures
and surfactants formed by modified fullerenes. These new materials have a
range of potential applications including delivery agents. Professor Kisker
will use the ultracentrifugation in her studies of DNA repair while
Professor de Los Santos will make use of the instrument in his studies of
damaged DNA. DNA repair is essential for maintaining the correct genetic
information. Mutations are the primary cause of hereditary diseases, as
well as cancer, and may also be involved in aging. Professors' London and
Smith will investigate fundamental issues in membrane protein structure and
folding and the ultracentrifuge will play an important role in their work.
It is estimated that 30 % of all proteins are membrane proteins but very
little is known about their structure and folding despite the fact that
they play a central role in many important biological processes. Professor
Raleigh will use the instrument in his studies of the process of protein
folding. The protein-folding problem refers to the mechanism by which an
initially unfolded protein achieves its final functional structure. It has
long been known that the linear sequence of aminoacids dictates the final
folded structure of proteins but the rules that govern this key assembly
process are still not understood. Professor Sampson will use the instrument
in her studies of the important enzyme cholesterol oxidase, which is used
as a cholesterol sensor. Professor Sampson and Professor Tonge will make
use of the instrument in their basic studies of enzyme functions while the
laboratory of Professor Scarlata will apply the instrument to studies of
viral assembly. Professor Schindelin will use the ultracentrifuge in his
studies of the proteins involved in the biosynthesis of critical molybdenum
cofactors.

The consortium of investigators who will make use of the analytical
ultracentrifuge study fundamental problems in biology, biochemistry and
polymer chemistry. Many biologically important molecules as well as many
man made macromolecules work in tandem with closely associated partners.
Understanding the detailed nature of these interactions is key to
understanding these complex systems. An analytical ultracentrifuge is
required for these studies. Examples taken from work at SUNY Stony Brook
include studies of critical proteins involved in the repair of damaged
genetic material, the assembly of viruses, the behavior of novel new
materials made from C60 ("buckyball" derivatives), and studies of the
fundamental processes by which proteins acquire their biologically active
state. The instrument will also greatly enhance the infrastructure for
training graduate students at SUNY Stony Brook and will also benefit
researchers at nearby Brookhaven National Laboratory